Contributions from Geomagnetic Inverse Theory to the Study of the Hydromagnetic Conditions Near the Core-Mantle Boundary

The PI will apply inverse theory to problems of main-field geomagnetism. Controversial questions include (1) how to estimate the errors in the geomagnetic field B at the earth's surface, obtained from observatory and satellite data; (2) how to extrapolate B down through the conducting mantle to the core-mantle boundary (CMB); (3) how to test for flux conservation at the CMB; (4) how to estimate the fluid velocity v at the top of the core from B at the CMB; (5) how to interpret v in terms of core physics.